The Formation of Giant Planets on Wide Orbits

This work will focus on understanding how large planets form in the outer reaches of a solar system. Planet formation in the inner regions of a solar system is reasonably well understood. Further out - up to thousands of AU away from a parent star - there is no established model to explain recent startling discoveries of massive planets in these areas. The researchers will analyze recently-gathered survey data from the Keck Observatory to establish if and how the number and mass of planets in the outer reaches of a solar system depends on the mass of the parent star. The form of this dependence (or its lack) might shed light on the new Disk Instability model as a potential formation mechanism. The survey data represent 400 young, low-mass red dwarf stars, and comprises the largest survey in this stellar mass range. The team will include a graduate student, as well as three undergraduate summer students. These students will participate through UT's TAURUS program, which makes research opportunities in Astronomy available to under-represented students.

The team will analyze Keck NIRC2 coronagraph data of 400 young, low-mass stars to directly image planetary companions in far orbits. The survey data incorporate previously unknown young K- and M- dwarfs that the team identified using a new methodology to locate members of nearby young moving groups. There are three phases involved in this work: (1) the team will establish the ages and kinematic group membership of the sample using high-resolution spectroscopy combined with new parallaxes from Gaia DR2; (2) the team will carry out PSF subtraction for all coronagraphic observations using a large reference library they will compile comprising thousands of NIRC2 PSF templates; and (3) they will measure the relationship between giant planet frequency and stellar host mass through a meta-analysis of the program together with published surveys in the literature.